Beyond the Standard Model II; Norman, Oklahoma; November 1-3, 1990

A conference entitled "Beyond the Standard Model II" will be held at the University of Oklahoma November 1-3, 1990. This elementary particle physics conference will include discussion of superstring theory, cosmic strings, supersymmetry, left-right symmetry, conformal field theory, technicolor, subquark models, grand unification, quantum gravity, limits on new particles, and cosmological consequences of new physics. The so-called "standard model" of elementary particle physics is universally believed to be incomplete, so that conferences devoted to possible physics beyond the standard model are very important.